New Directions in the Mathematics Preparation of Preservice Elementary/Middle School Teachers

Western Kentucky University seeks funding for a two-year program: New Directions in the Mathematics Preparation of Preservice Elementary/Middle School Teachers. The purpose of the project is to assist and prepare college mathematics faculty members throughout Kentucky to teach elementary and middle grades preservice teachers. The professional development program will take place over a period of two summers and the included academic year. For one week each summer, the participants will be in workshops working with national consultants, with experienced mathematics educators from the state, and with classroom teachers including Presidential Award Winners in Mathematics. The focus will be the implementation of the National Council of Teachers of Mathematics Curriculum and Evaluation Standards for School Mathematics and the Professional Teaching Standards, as well as the Call For Change from the Mathematics Association of America. Throughout the year, the group will meet at least two additional times with funding for the additional meetings from the Exxon Foundation and support from two state organizations, The Kentucky Council of Teachers of Mathematics and the Kentucky Chapter of the Mathematics Association of America. A new state organization, The Kentucky Mathematics Association of Teachers of Teachers was organized during the process of formulating the proposal and the group will work with the PI throughout the project and after funding ends to continue the faculty development and network. A newsletter will also be published to connect participants to each other and to give information on state and national issues, resources and materials, and professional meetings. This project has the potential of being an exemplary model for mathematics faculty development in a state or region. Participants will be selected from public and private institutions, including two-year colleges, in Kentucky and funding for their travel will be assumed by their individual institutions. Cost-sharing by Western Kentucky University, by the Exxon Foundation, and by other institutions of higher education in Kentucky is 51% of the total cost requested from NSF.